RUI: Imaging and Spectra at the 2023 and 2024 Total Solar Eclipses

A thorough understanding of the solar corona remains one of the most important areas in solar research. Studies of the solar corona during solar eclipses have been a major part of the success of the Williams College astronomy department in attracting and training students. This project continues solar eclipse studies with unique, ground-based measurements in concert with space-based and ground-based radio observations from NSF-funded telescopes. Undergraduate students, including students from under-represented groups in STEM, will be trained and participating in observations of two solar eclipses.

The solar eclipse observations include exquisitely high-resolution observations with a Fabry-Perot and with Lyot/Halle filters. Observations also include high-frequency (> 1 Hz) power spectra of narrow-band coronal loops to compare mechanisms of coronal heating. Spectrographic observations continue to study changes of the spectral-line ratios over the solar-activity cycle through the predicted 2024 low maximum, comparing with previous solar-minimum observations from this group. Additionally, radio observations will be make with the NSF-funded Jansky Very Large Array, to provide the best-ever mapping of active regions to pinpoint the different locations of radio and EUV eruption origins, and Owens Valley Radio Observatory and a radiotelescope in the Apple Valley. The aim is to study differences in the corona during solar minimum and solar maximum.